Workshop and Studies into the Economic Impacts of Global Environmental Change and the Greenhouse Effect

Although significant progress has been made in studies of the greenhouse effect in many of the natural sciences, relatively little effort has been devoted to the downstream assessment of the economic and social impacts of the greenhouse effect. This proposal is designed to improve understanding of both substantive and methodological developments concerning the economic and social impacts of global environmental change, through both a regular workshop reviewing ongoing research and a program of research focusing on specific areas of global environmental change. The workshop will involve bringing together social scientists and others working on energy and resource economics, forestry, agriculture, and methodology to improve both research techniques and substantive knowledge of the likely impacts arising from the greenhouse effect. The other major task will focus on developing an hedonic model of the value of climatic variables for use in evaluating potential climatic changes. This technique will provide a much more detailed analysis of the economic impact of climatic change than have past studies, and in addition will provide regional detail on the distribution of the impacts of climatic change.